Research at Ultra High Energy Cosmic Rays and Particle Physics

The work is in the field of astrophysics. The origins and structure of the universe will be investigated by studying cosmic rays impinging on the earth from outer space. Measurements of cosmic ray showers will be made to establish and determine the properties of point sources of these rays. A novel detector will be developed and constructed made up, primarily, of 64 tracking stations. Each station consists of eight proportional wire chambers each with an area of 1.25 square meters. The directions of individual tracks in the stations will be used to reconstruct the incident cosmic ray direction to 1/4 deg. This technique has the potential to increase the sensitivity, per area covered, by a factor of 16 compared to cosmic ray arrays of conventional design.